LIGO Laboratory Operations and Maintenance 2019-2023

Researchers at the Laser Interferometer Gravitational Wave Observatory (LIGO) seek to observe and understand gravitational waves. Gravitational waves (GWs) are oscillations in space and time that are generated whenever mass moves suddenly. They can carry information about cosmic catastrophes, such as the collisions of black holes and neutron stars. Since 2015, LIGO has observed six GW events, revealing entirely new information about these exotic objects, which are located tens or hundreds of millions of light years away. This award will enable LIGO to search for additional GW signals and to improve LIGO’s sensitivity so that it can observe even more distant cataclysms.
LIGO is the world’s premier gravitational wave observatory. It is a key part of an emerging global network of similar detectors. These are now in operation or under development in Italy, Japan, and India. Concurrent measurements by LIGO and optical, radio, and X-ray observatories have inaugurated the era of multi-messenger astronomy, when synergistic detections of gravitational waves and electromagnetic waves reveal entirely new and exciting information about the cosmos. LIGO’s historic GW observations were recognized by the award of the 2017 Nobel Prize in Physics to LIGO pioneers Barry Barish, Kip Thorne, and Rainer Weiss.
This award will stimulate the development of a scientific and technically educated workforce, advance the multidisciplinary application of LIGO-related technology, and it will disseminate information about LIGO-related science and technology to the general public. This award will fund the operation of the existing LIGO apparatus, as well as the design, test, and operation of apparatus that will improve LIGO’s sensitivity. This, and related research activities, will create continued opportunities for interdisciplinary collaboration between LIGO staff members, post-docs, and students, and the approximately 1100 researchers and students at 108 universities world-wide that collaborate with LIGO.
Technical part: Funding in the amount of up to $225,000,000 is provided for the continued operation of the LIGO observatories at Hanford Washington and Livingston, Louisiana, the associated science and engineering support programs at Caltech and MIT, and for carrying out education and public outreach programs that disseminate information about LIGO. Funding will be awarded through a new current cooperative agreement (PHY - 1764464) for the period from October 1, 2018 through September 30, 2023. The proposed effort includes:
• Maintenance and operation of the LIGO sites and interferometers
• Commissioning the interferometers to enhance their sensitivity to GWs
• Conducting astrophysical data analysis and detector characterization to discriminate GW signals from noise sources
• Carrying out research and development to enhance detector sensitivity beyond the current design performance
• Curation of LIGO data and its dissemination to the broader research community
• Provision of software and computing resources to LIGO, and the development of new computing tools and methods that extend LIGO’s data analysis capabilities
• Continuation of the vibrant observatory-based LIGO education and public outreach program